Unraveling the Mechanisms of a Rapid Aqueous Method for Monodisperse Micrometer Gold Particle Synthesis

Professor Shan Jiang of Iowa State University is studying how highly uniform metal particles can be manufactured rapidly in water. The project will investigate a newly discovered room-temperature process that produces gold particles ranging from the nanoscale to several micrometers in size within seconds, without the need for heating, organic solvents, or complex processing steps. By revealing the principles that enable this unusually fast and efficient synthesis, the research will advance approaches for manufacturing materials used in catalysis, biomedicine, and advanced technologies. The project will also support the education and training of undergraduate and graduate students through interdisciplinary research experiences including synthesis, characterization, and computational modeling. Outreach activities will engage students through partnerships with the Des Moines Public Schools SUCCESS program, while new instructional modules will incorporate project discoveries into university courses, helping prepare a future workforce in materials science and data-driven manufacturing.

Professor Shan Jiang of Iowa State University is studying the mechanisms governing a unique aqueous synthesis pathway that generates monodisperse gold particles in the range of nanometers to micrometers in diameter within just a few seconds. The research will test a two-stage growth mechanism in which reduction reaction produces nanoscale nuclei that subsequently grow into uniform larger particles through self-regulated aggregation. Time-resolved spectroscopy, advanced electron microscopy, electrochemical measurements, and multiscale computational modeling will be integrated to determine how charge redistribution, ligand interactions, and oligomer formation control particle growth. The project will establish a predictive framework for rapid particle manufacturing that extends beyond existing nucleation and growth theories. The resulting insights are expected to provide broadly applicable design principles for controllable synthesis of gold and other metals. The study will not only advance fundamental understanding of particle synthesis, but also enable new strategies for scalable materials manufacturing.